New asymptotic methods and applications to physical problems

The project focuses on further development of constructive and
rigorous asymptotic analysis of linear and nonlinear partial
differential equations that arise in a number of important physical
applications. The applications include (a) evolution of small
disturbances superposed on an oscillatory flow in a channel or pipe,
of interest in transition to turbulence, (b) existence and stability
of self-sustaining states in channel and pipe flows, believed to be
omega-limits in intermediate Reynolds number turbulent flow, (c)
nonlinear stability of steadily translating fingers and bubbles in
Hele-Shaw flow for small nonzero surface tension, of interest in
pattern formation, (d) ionization of Hydrogen atoms in time-periodic
dipole fields of arbitrary frequency and amplitude.

Our understanding of the solutions of equations arising in fluid
motion and quantum mechanics is still very limited. The present
project develops much needed new methods to study these problems.
Among the immediate applications outside mathematics we note for
instance that understanding turbulent fluid flow can lead to a more
energy-efficient transportation of fluids through pipes. Also, better
understanding of ionization processes has many applications, including
optimal propagation of very intense laser beams through the
atmosphere. Training of students --supported in the project-- will
help maintain the high quality of research in the United States for
the coming generation.